SSC: "Summer Science Camp With SPACES and Schooner"

As we move into the 21st century, science and technology play an increasingly important role in all aspects of our society; therefore, it is imperative that our future decision-makers develop a positive attitude toward solving problems through science education as well as to comprehend the impact of science and technology on the individual, culture and society. The New Haven SPACES Initiative will identify 50 youth with at-risk factors operating in their personal lives. They will be enrolled in the New Haven SPACES Initiative and participate in a three-level program designed to develop positive attitudes in personal growth, career development and interpersonal and global relations. The proposed six-week summer camp will provide an intensive hands- on experience with science and math activities for youth entering the seventh, eight and ninth grades. An important part of the program will focus on aquatic ecology featuring canoe trips down the Quinnipiac River to Long Island Sound. The activities planned for such a camp would accomplish the following objectives: Positive Youth Development- Experiential education has proven effective for knowledge gain and development of positive attitudes and life skills. This program would provide participants development opportunities that enhance positive self-esteem, feelings of accomplishment, responsible decision-making and problem solving, and communication and personal management skills. Improve Science and Math Literacy- The summer camp setting will create and informal participatory setting within which to foster scientifically literate individuals who will effectively use their science education to make wise decisions and become responsible, problem-solving citizens. Through active participation, youth will learn how science and math relate to their lives and how they, as individuals, impact their environment. By using operational processes of science and math in informal settings, the participants will develop a positive attitude toward learning. Career Preparation-The activities planned will allow participants to explore a variety of science and math careers. Interaction with professionals in these fields will enhance their experience and knowledge. Improved literacy skills will prepare participants for productive employment in the fields of science and math ***